NSF East Asia and Pacific Summer Institute for FY 2012 in China

This action funds Adrian S. Johnson of University of South Florida to conduct a research project, entitled "Learning anatomy in Chinese society via a natural spatial augmented game environment (SAGE) projected onto the self," during the summer of 2012 at the Institute of HCI and Media Integration at Tsinghua University in Beijing, China. The host scientist is Dr. Linmi Tao.

The Intellectual Merit of the research project is related to using computer vision and augmented reality to create a more natural learning modality and user experience.

Broader Impacts of an EAPSI fellowship include providing the Fellow a first-hand research experience outside the U.S.; an introduction to the science, science policy, and scientific infrastructure of the respective location; and an orientation to the society, culture and language. These activities meet the NSF goal to educate for international collaborations early in the career of its scientists, engineers, and educators, thus ensuring a globally aware U.S. scientific workforce.